Enhancing CS Faculty Members' Knowledge of the Laboratory Approach to Teaching Computer Science

During the first summer workshop, faculty will develop laboratory activities, they will class-test these activities during the academic year, and evaluate and refine them during a second summer workshop. The workshop will include instruction in multiprocessing, in addition to methodologies for laboratory exercise development.